Improving the Infrastructure for Conducting Large-Scale Policy and Practice-Related Education Research

Improving the infrastructure for conducting statistical studies of education, especially mathematics an science education, is imperative if policy decisions are to be informed by a reliable and extensive knowledge base. based on experience from its current grant (Enhancement of Education statistics, Mathematics and Science Education, and the Educational Research Infrastructure, RED-9255347). AERA proposes a program of research and training designed to achieve two primary objectives: (a) to enhance the capability of the research community to conduct research using nationally representative data sets that informs education policy and practice, and (b) to increase scholars' understanding of national policy and practice issues through communication with federal government social scientist and administrators.